Combined Cost-Analysis for Planning in Manufacturing

Traditional cost analysis in manufacturing contains many assumptions that eventually lead to incorrect decisions. Cost accounting does not include adequate production models and assumes that costs are linear. Cost allocation rules used in these models may distort the perceived part costs and lead to incorrect decisions. The proposers propose a new method of analysis: a total system model. It creates a complete model of both the production system and business expenses. It uses queling theory to model the production system. Details and benefits of this model are included. The cost model contains the production related costs as well as all non-production resources and their expenses. This data needs to be sufficient to create a financial statement for the manufacturing unit. Analyzing each production scenario will involve building a system model of that scenario. Decisions are made by comparing the system models of each possible scenario. This method of analysis avoids the pitfalls of traditional cost analysis and can answer previously unaddressed questions in a simple and understandable manner.